Computer Science, Engineering, and Mathematics Scholarship Program

Building upon the achievements of the current academic support infrastructure, Drexel University is implementing a comprehensive Computer Science, Engineering, and Mathematics Scholarships (CSEMS) program to increase the recruitment, retention, and graduation rates of economically disadvantaged and historically underrepresented students. The program serves students throughout the calendar year. Activities include a summer program, mentoring, a career awareness center, corporate and college partnerships, counseling, corporate alumni advising, faculty involvement, and undergraduate research. Students maintain continuous contact with CSEMS staff who provide academic advising, career counseling, and graduate school exploration workshops. Specifically, this project is preparing engineering, computer science, and mathematics undergraduates for successful careers in technical professions.